Geometric Problems in Radiosurgery, Radiation Therapy, and Other Medical Applications

This project is on the design, analysis, and implementation of
algorithmic techniques for solving geometric problems that arise in
radiosurgery, radiation therapy, and other medical applications.
Radiosurgery is a minimally invasive surgical procedure that uses
a set of focused beams of radiation to destroy tumors. A key step
in radiotherapy and radiosurgery is to develop a treatment plan that
defines the best radiation beam arrangements and time settings to
destroy the target tumor without harming the surrounding healthy
tissues. At the core of radiation treatment planning is a set
of substantially non-trivial geometric optimization problems.
We seek to investigate a number of geometric optimization
problems arising in radiation treatment planning, such as beam
selection (including beam probing and its many variations), surgical
navigation and routing, sphere packing, beam shaping, image
segmentation, shape approximation, and beam source path planning.
This interdisciplinary research will draw diverse techniques from
computational geometry and other theoretical areas, such as operations
research and combinatorial optimization. Furthermore, this research
will provide a rich source of problems and new challenges that prod
further development of algorithmic techniques in these theoretical
areas. The planned research includes an important experimental
component. Educational activities on course development and student
training in the interdisciplinary area of computational medicine are
also part of the project.